Dissertation Research: Moisture-mediated Predation in an Underground Trophic Cascade

I am researching how moisture influences a multi-predator trophic cascade in a
soil system. At my research site on the California coast, the entomophagous fungus
Beauveria bassiana is the most potent predator of root-feeding insects in dry summer
soil. During the rainy winter and spring, however, soil moisture increases sharply and the
entomopathogenic nematode Heterorhabditis marelatus becomes the primary predator as
B. bassiana decreases in predatory efficiency. Both prey on ghost moth (Hepialus
californicus) larvae, root-feeding herbivores that feed on the bush lupine Lupinus
arboreus. The lupine shows increased growth, seed set, and survivorship in the presence
of the nematode, which preys on H. californicus that would otherwise eat the lupine's
roots. The wet-season interactions in this food chain are known as an important example
of a terrestrial trophic cascade. My research seeks to develop a complete picture of this
food web by understanding predation on the herbivore during the dry season, and the role
that moisture plays in both predators' activities. I also propose testing whether the two
predators have equivalent impacts on the prey population, possibly leading to cascades
due to different predators in the wet versus dry season.